Workshop: Numerical Modeling of Earthquake Source Dynamics, Slovak Republic, August 31 through September 3, 2003

The NSF award (EAR-0314367) will provide partial travel support for researchers to attend the workshop on "Numerical Modeling of Earthquake Source Dynamics" to be held at the Smolenice Castle (near Bratislava), Slovak Republic, August 31 - September 3, 2003.

The purpose of the workshop is to bring together the various researchers from the United States, Asia and Europe who use numerical simulations to investigate dynamics of the earthquake source, to communicate the state-of-the-art of the earthquake dynamics research, to provide a unique opportunity for in-depth discussions. The three days of talks and discussion will cover a full range of topics related to earthquake dynamics: initial stress distributions on the fault, nucleation of the rupture, rupture propagation, friction laws, rupture arrests, stress drops and scaling, fault geometry, material heterogeneity, fault interaction, energy budget and seismic radiation, numerical techniques, simulating real earthquakes.

The Slovak Academy of Sciences and Comenius University will be hosts for this international workshop. It is organized by a steering committee: Ralph Archuleta, Chairman, University of California at Santa Barbara, Santa Barbara, California, USA; Michel Bouchon, Universite Joseph Fourier, Grenoble, France; Kojiro Irikura, Kyoto University, Kyoto, Japan, Raul Madariaga, Ecole Normale Superiere, Paris, France; Peter Moczo, Comenius University, Bratislava, and Slovak Academy of Sciences, Bratislava, Slovak Republic.